Biophysical Characterization of Information-Theoretical Spike Train Reconstructions

9412426 Koch The goal of this study is to understand how the electrical signals (called spikes) generated by nerve cells encode information. Studying nerve cells that are part of the early visual or auditory pathways in the nervous system provides an opportunity to directly relate visual or auditory stimuli with the trains of spikes generated by these neurons. To understand how the nervous system works it is important to understand how time-varying signals such as the velocity of a moving target in the visual field of an animal is encoded in such spike trains. Another important issue is to understand how information encoded in neuronal spike trains depends on the biophysical properties of the nerve cells, the hardware of the nervous system. This group of investigators will apply methods of information theory, which up to now have been mainly used in the engineering sciences, to estimate the rate, in bits per second, at which nerve cells can transmit information and to understand better the nature of the encoding of time-varying signals in neuronal spike trains. The role of the biophysics of single cells in this information transmission will be investigated by performing realistic computer simulations of nerve cell activity.